Drafting and Design CADD - CADD/CAM Laboratory Enhancement

This project proposes adds state-of-the-art hardware and software to teach computer-aided drafting/design, and computer- aided drafting/ computer-aided manufacturing, enhancing the Drafting and Design programs at Western Iowa Tech Community College. The equipment (hardware/software combination) proposed here would enable the college faculty to develop tutorials on disk accompanied by manuals for CADD/CAM instruction; to enhance efforts to train trainers...that is, to provide training for instructors at the secondary and collegiate level who in turn teach computer assisted drafting in a program of applied math and science; to improve access to the handicapped and other special populations who have the ability to compete successfully in drafting occupations but need special equipment in order to keep pace with other students. To enable the Drafting and Design department to be designated as a national beta test site for CADD/CAM hardware and software manufacturers, which would not only enhance learning opportunities for students, but also their employability. to provide enrolled undergraduate students more efficient educational opportunities that reflect the technological advances in industrial engineering technologies.